Engineering and Physics of Superconducting Nanowire Single-Photon Detectors

The objective of this program is to engineer nanostructures to control the thermal properties of superconducting nanowire single-photon detectors. Specific objectives are: engineer the electro-thermal response of the detectors to improve the speed of these devices; and, model the microscopic mechanism of photodetection to shed light on the physical origin of the detector jitter and minimize it. To achieve the first objective, an improved electro-thermal model of the superconducting nanowire will be developed. Nanostructures will be designed to directly control the thermal behaviour of the nanowires at the nanoscale, which will in turn allow validating the predictions the theoretical model. Achieving the second objective will require the development of a detailed model of the excitation and expansion of the hot-spot.
The intellectual merit of this program is to advance the speed and timing precision of superconducting nanowire single-photon detectors by first clarifying their fundamental physics of operation, and then engineering a new device architecture based on this understanding.
The broader impacts of this program are: (1) the introduction of a new generation of diverse undergraduate and graduate students to the fields of superconductivity, thermal processes in condensed matter, and nano- and quantum-optics; (2) the integration of the scientific results as case studies into the curriculum of two courses (one for graduate students and advanced undergraduates, and another targeted at post-graduate professionals), which focus on the practical role of nanofabrication in advanced research; and (3) the development of technological applications in industrial and scientific areas ranging from communications to astrophysical observations.